Combinatorics and Geometry in Representation Theory

This award supports research in combinatorics and geometry with
applications to representation theory. The project investigates the
geometry and invariant theory of reflection groups. The PI explores
relations between complex polytopes, Coxeter-like complexes, Hecke
algebras, and the coinvariant algebra. Techniques may help develop a
Kazhdan-Lusztig theory of cells for complex reflection groups.

Reflection groups arise in nature as symmetry groups. For example, the
symmetries of the cube or dodecahedron (or any Platonic solid) form
a reflection group. These groups are generated by mirror reflections
(about hyperplanes) and appear in physics, biology, chemistry, and
computer science. Reflection groups also have a rich history of
connecting many different areas of mathematics: discrete geometry,
topology, singularity theory, arrangements of hyperplanes, Lie
theory, combinatorics, and invariant theory.